Role of Cholinergic Factor in Developing Nervous Tissue

The phenotype of immature neurons is influenced by cues from the local environment in which they develop. One well-characterized environment cue is a glycoprotein produced by various types of cultured cells, known as cholinergic neuronal differentiation factor (CDF), or leukemia inhibitory factor. CDF, a member of a group of growth/differentiation factors called cytokines, acts on a wide range of cell types and exerts a variety of effects. This is in contrast to the nerve growth factor family that mainly acts on neurons and supports their survival. Despite our knowledge of a number of effects in vitro, the physiological role of CDF in the developing nervous system is unknown, and it is the goal of this research to understand this role. To elucidate the physiological role of CDF, it is critical to know which neural cells respond to CDF and which produce CDF in vivo. At present, the full spectrum of CDF-responsive neural cells is unknown, and little is known about CDF-producing cells in the nervous system. Using pure native CDF and its function-blocking antibodies, two approaches are proposed for systematic investigation of potential CDF-responsive and CDF-producing cells in the developing nervous system: 1) examination of CDF receptor distribution by radioautography using iodinated native CDF as a probe; 2) determination of the tissue content of CDF protein by two-site immunoassay. These studies will provide essential information necessary for formulating specific hypotheses for the role of CDF in the developing nervous system.